Engineering Properties of Compaction Concrete Reinforced with Steel Fibers for Pavement Construction

This project will investigate a combination of concepts which may lead to better performance of the concrete material. The two concepts which are being merged are: the use of roller compacted concrete which requires less cement in addition to poorer grades of aggregates, because high grade aggregates are becoming scarce, and the use of steel fibers to provide extra tensile strength and durability to the concrete. The potential benefits to be derived are: possible overall economies, longer life for the pavement, and thinner pavements because of the extra strength. The results will be of benefit to local, state, Federal agencies, and industry concerned with highways, airports, parking areas, and industrial building construction.